U.S.-Chile Cooperative Research: Effects of UV-B Radiation on Photosynthesis in Bean and Maize

9724829 Ku This Americas Program award will fund a collaborative research project on plant responses to UV-B radiation, between Drs. Maurice Ku and Gerald B. Edwards, Washington State University , and Drs. Manuel Pinto and Claudio Pastenes, University of Chile. The major objectives of the proposed study are to identify specific alterations in photochemical, biochemical and physiological processes of photosynthesis induced by supplementary UV-B radiation in bean (C3 species) and maize (C4 species), and to evaluate the relationship between these alterations and the loss/change in photosynthetic rate. The purpose is to determine if modifications in photochemical efficiency and photosynthetic enzymes correlate with changes in photosynthetic capacity by UV-B treatment. The hypothesis is that the decrease in photosynthetic capacity in bean caused by UV-B radiation would be related to changes in key photosynthetic enzymes and/or changes in photochemical efficiency. For this study, representative bean cultivars with contrasting tolerance to UV-B will be used. Over the past three decades, there has been a significant increase in research involving the effects of UV-B radiation on plant systems. Based on those studies, it is estimated that about one half of all plants species, (especially herbaceous species) are negatively affected by that increased radiation. However, because some species are known to be well adapted to high UV-B radiation environments, a comparison of changes in enzyme activity versus protein content during UV-B treatment will allow the researchers to assess if the changes in protein amount or activation state is responsible for the loss/change of photosynthetic capacity. Interactions between plants and their environment are complex, but important to our understanding of plant productivity. Reduction of stratospheric ozone, which primarily absorbs UV-B radiation, has raised concerns about the potential implications of rising UV-B radia tion at the Earth's surface. ***